Relativistic Effects in Nuclei (Physics)

A relativistic Brueckner Hartree Fock equation will be solved using realistic N-N forces. The results will be used for bound states and to construct a relativistic optical model.